Theory of Scattering of Muonic Hydrogen Atoms in Nuclear and Atomic Targets

Using methods developed by Soviet scientists, detailed calculations of mesic atomic and molecular scattering cross sections will be performed. These results will allow a detailed analysis of experiments which have been performed as a result of the collaboration between William and Mary, PSI (Switzerland), IMEP (Austria) and Munich (Germany) and will be helpful in planning future experiments.